Computer Facility for Research in Seismology

This award provides 50% of the funds required for the acquisition of a computer file server system required for the research of the seismology group in the Department of Earth and Planetary Sciences at Harvard University. The University is committed to providing the remaining funds needed for the acquisition. The computer system will allow the researchers to address a broad range of problems dealing with the interpretation of data from globally distributed digital seismographic stations to arrive at the Earth's three-dimensional internal structure from its crust to the core.